The Multicultural Science and Mathematics Snackbook

9450279 Brazin The Exploratorium Teachers Institute proposes to develop, test, and distribute three multicultural science and mathematics monographs for use in middle and high school classrooms. After extensive classroom testing, the three monographs will be revised and combined into one book for national dissemination. These publications will (1) present science and mathematics through tools and designs from a variety of world cultures, and (2) provide related hands-on, investigatory activities for students. The philosophy and format of the publications will be based on the successful Exploratorium Science Snackbook. The initial publications will be self-published and distributed. A revised product, based upon feedback from initial users, will be published commercially. The proposed publications are designed to increase awareness of multicultural issues for all students, while making science more relevant and approachable to students of color.